WHOI CTD/Hydrography Operation Group Preparation for the WOCE Hydrographic Program Pacific Ocean Study

Measurements of the density field of the ocean are necessary to understand the circulation. One of the principal instruments for this measurement is a Conductivity/Temperature/Depth (CTD) device. This proposal will provide an upgrade of the sensor suites on instruments to be used in the World Ocean Circulation Experiment (WOCE). In addition, a van for measurement of oxygen and salinity in situ will be constructed.